A Precautionary Demand for Savings, Liquidity Constraints, and Tests of the Permanent Income Hypothesi:RUI Award

Many countries have experienced difficulties managing commodity export booms and fail to follow a savings path that is consistent with the life cycle-permanent income hypothesis. Having estimated the size of the booms and busts and then using these estimates to test the life cycle hypothesis for Botswana and Kenya, it appears that Botswana saves boom income, which is consistent with the life-cycle hypothesis, while Kenya does not. Among the questions suggested by these findings are: (1) Is there a precautionary demand for savings in Botswana, and can the findings for Botswana be explained by a precautionary demand for savings? (2) Can the results for Kenya be explained by liquidity constraints or by myopic behavior? The purpose of this research is to provide answers to these questions. Models will be refined and tested empirically in order to address these issues. The research is important because it will provide a clearer understanding of why countries respond to boom times the way they do and how public policy might mitigate the effects of commodity induced booms and busts in developing countries.